Photonuclear Experiments

A user mode research program will be carried out in photonuclear reactions on few-body systems. The experimental work will be carried out at the University of Saskatchewan electron linac and pulse stretcher ring, and will make use of a large acceptance charged hadron spectrometer and a mono- energetic beam of gamma rays. Results will lead to improved understanding of the structure of light nuclei, and our ability to predict properties of such systems based on the latest nucleon-nucleon potentials. Equipment development, simulations, data analysis, and interpretation will be carried out at Virginia Polytechnic Institute and State University.